Signaling Vector Analysis of Cell Migration

CBET-0828936
Jason M Haugh, North Carolina State University

Intellectual merit

This project offers a new conceptual framework for thinking about control of fibroblast migration at the level of intracellular signal transduction and novel tools for quantitatively analyzing it. If successful, the proposed work would more generally unify distinct cell migration stimuli and behaviors in terms of common signaling dynamics, providing a blueprint for more ambitious studies with other cell types, environmental contexts, and molecular-level perturbations of the underlying signal transduction network.

Broader impacts

The project would contribute to the training of researchers in the cross-disciplinary areas of engineering analysis, cell biology, fluorescence microscopy, image analysis, and kinetic modeling. In all of these endeavors, the PI will maintain an inclusive research environment that embraces diversity on all levels. The results of the proposed research will be published in archived, peer reviewed journals, and all MATLAB codes will be freely available via the PI's website.